Computerized Data Acquisition and Analysis in Introductory Physics Laboratories for Engineering and Science Majors

This award is made as part of the Instrumentation and Laboratory Improvement Program. This Program funds innovative new projects for undergraduate physics laboratories. The project supported here will focus on computer-oriented data collection and processing, which will be applied to a broad range of experiments.